Develop and Report State Indicators of Science and Mathematics Education, and Analyze Progress of Systemic Reform and Alignment of State Standards

9803080
Blank

The Council of Chief State School Officers (CCSSO) proposes to the National Science Foundation (NSF), Division of Research Evaluation and Communication to lead a two-year project that will provide two research and evaluation products on the condition of science and mathematics education: (1) state-by-state and national indicators for monitoring progress in science and mathematics education; and (2) study of the effectiveness of systemic reform initiatives and state content standards in improving curriculum, instruction and student assessments.